Computing Frontiers: Prospects from Biology

The Computer Science and Telecommunications Board of the National Academy of Sciences proposes to explore the intersection of computer science and biology in order to find new interdisciplinary opportunities and new directions for expanding information technology research. New emphasis areas for resrach program planning by NSF, DARPA and NIH will also be developed. Using workshops and minisymposia, the Board will produce a report, reviewed through the National Research Council process, that will be distributed through a variety of mechanisms and media. The dissemination process will by initiated by a public briefing on the report.